RF Superconductivity and Devices

In this proposal, the P.I. describe a research program focused on the RF properties of superconductors, the relevant physics, and device applications. Particular focus is on the RF properties of thin films to the high-Tc cuprate superconductors; the properties of nanoscale superconducting transmission lines for which nonlinearties and finite relaxation effects become important, and nonlinear wave device applications of series array Josephson junction transmission lines. The work involves RF measurements, device modeling and circuit simulation, as required. The work is being carried out in association with a larger, emerging program at Stanford on cryoelectronics.